Taking a Systemic Approach to Diversity: Efforts by the American Physiological Society

HRD 03-28248
The American Physiological Society (APS) has several initiatives that work to increase diversity among physiologists by (1) monitoring the progress of minorities in the field of physiology, (2) developing long-term targeted programs for minority students and teachers, and (3) developing policies and procedures that assure that non-targeted APS programs involve diverse participants. The resulting set of programs and activities contribute to our overall understanding of effective program models.